Collaborative Research: Midwest Geometry Conference 2005-2007

Abstract

Award: DMS 0509068, 0508661, 0509714
Principal Investigator: Thomas P. Branson, Shihshu Walter Wei,
Andrzej J. Derdzinski
Institutions: University of Iowa, University of Oklahoma,
Ohio State University

The Midwest Geometry Conference has been meeting annually since
1991. Its goal is to present recent advances in differential
geometry, geometric analysis, and integral geometry to geometers
from the Midwest, including junior level researchers and some
graduate students. The main part of the program consists of
several plenary lectures given by experts in specific sub-fields
(who need not be Midwest-based); an opportunity is also provided
for some of the participants to give contributed talks. The
current project provides for conferences in the spring of 2005,
2006, and 2007 at the Ohio State University, the University of
Oklahoma and, respectively, the University of Iowa. The Ohio
State conference, planned for April 29 to May 1, 2005, will focus
on three topics: positively curved manifolds; Ricci flow,
solitons and Einstein metrics; geometric group theory. The lists
of topics for the other two conferences are still tentative, and
include: symmetric criticality; p-harmonic geometry; convexity,
positively curved manifolds, and Ricci flow (Oklahoma, 2006), as
well as: symmetries and overdetermined systems of PDEs; the
AdS/CFT correspondence; nonlinear hyperbolic evolution equations;
geometric scattering theory (Iowa, 2007).

The Midwest Geometry Conference is dedicated to the exchange of
ideas among members of the geometry community in the Midwest, as
well as dissemination of important research advances and ideas,
nationwide and worldwide, in differential geometry and related
fields. A key objective of the conference is the attempt to
encourage researchers and potential researchers in the Midwest,
especially those who work some distance from the large research
centers, as well as young people, women, and members of
underrepresented groups. "Warm-up" sessions for graduate
students and young researchers are planned for the days leading
up to the conference. At least one of the three or four focus
topics at each conference is related to applications of geometry.
Historically, such applications lie primarily in physics, with
prominent examples provided by Einstein's general theory of
relativity and the currently accepted Standard Model of
elementary particles and their interactions. Other well-known
applications of differential geometry are in engineering, for
example robotics. A further example pertains to evolution
equations, which are currently a subject of keen interest to
differential geometers and, at the same time, have the applied
aspect of describing how some materials, or the space itself,
develop in time. A very specific example of the latter kind is
provided by the mean curvature flow. The surface of a globule of
molten plastic evolves, or adapts in time, to have the minimum
possible curvature; this evolution is completely determined by
the globule's curvature. This fundamental observation provides
an understanding of a wide range of flow problems, and allows an
approach to predicting the flow. This has immediate relevance to
injection molding of materials, for example in the dashboards and
bumpers of automobiles. But the fundamental principles behind
mean curvature flow have also provided a paradigm for problems
like the Ricci flow, in which the metric properties of space
itself are the quantities which are evolving. Questions of the
latter kind will be central to the coming meetings of the Midwest
Geometry Conference.